Mathematical Sciences: Cascade Topology Seminar

9401613 Bleiler The Cascade Topology Seminar will be held at a series of universities in the Pacific Northwest on a semiannual basis over the three years beginning in the fall of 1994. While topological topics will predominate, the range will include geometry and analysis. The stated objectives are to provide frequent contacts between workers in similar fields, to keep the area abreast of recent developments by bringing in speakers from outside the area, to encourage local graduate students and topologists to hear, consult, and possibly collaborate with the outside speakers, and to provide an opportunity for local people to lecture on their own work. Inclusion of graduate students will continue to be a very important aspect of the sessions. ***